The Addition of Automatic Identification Equipment in a Manufacturing Systems Design Laboratory

This project results in the addition of automatic identification equipment (primarily bar code equipment) to the present manufacturing systems design lab. The equipment is used to enhance the treatment of integrated materials handling systems design and real-time tracking and control, and enables students to work with various bar code technologies including scanning, printing, and data encoding.